Elementary School Science and Health Materials

The Biological Sciences Curriculum Study (BSCS) will design, develop, and evaluate a K-6 science/health program that will incorporate proven implementation strategies. The areas of discipline concentration will be equally divided among the life, health, earth, and physical sciences. The program will complement goals of science knowledge and processes with emphases on personal/social goals, problem solving, decision making, and technology. Project staff will use the appropriate results of research in the cognitive sciences to revise and develop materials. The results of research on implementation strategies will be applied when developing materials for teachers and administrators, and in designing activities that promote use of the new program. Implementation efforts are central to this project. Project outcomes will include: 28 activity-based student modules for a complete K-6 science/health program; teachers' guides and computer software for program management; implementation guides; and supplementary activities integrating science with reading, language arts, and mathematics. Kendall/Hunt Publishing Company is collaborating with BSCS in the development and implementation of this science/health program. The publishers will invest in excess of $2.9M during the 4-year development phase, and will continue teacher development activities in subsequent years. Private foundations as well as the Colorado Springs School District are also contributing to development and testing activities. This proposal is a solid and high quality response to the Solicitation, Programs for Elementary School Science Instruction, issued by the Instructional Materials Development Program. The project director and staff are well qualified by training and experience to conduct the activities. The track record of BSCS speaks well for the success of the project.